Water in the Earth System (WES): An NSDL K-12 Collection Project

A collection of digital K-12 materials and resources built around the theme of "Water in the Earth System (WES)" is being created to enhance the ability of K-12 teachers, students, and parents to easily find, access, and use high-quality, standards-based water resources in their classrooms, at home, and in informal learning environments. The collection of approximately 500 exemplary K-12 water resources (scientific, economic, and policy) is being used to investigate and learn about important water concepts, processes, and issues. The resource materials and associated tools and services are identified, reviewed, and cataloged by K - 12 teachers in collaboration with university scientists and educators. These individuals are working closely
with a number of other organizations including: federal and state government agencies,
professional scientific and education societies, academic institutions and centers, and
several other National SMETE Digital Library projects.

Important co-funding of this project is being provided by the Division of Earth Sciences in NSF's Geosciences Directorate.